Likelihood Methods for Population Samples of Sequences

It is becoming more common for biologists to collect multiple choices of the same gene from a population, and to get the exact DNA sequence for each. By looking at the differences that have occurred between the sequences, an idea how long ago they diverged from each other can be ascertained. When DNA sequences are collected for a single gene in a single population, they will be closer relatives the smaller the population size has been small. More similar DNA sequences are expected if the population size has been small. This project investigates the statistical methods for using these DNA differences to estimate the size of the population. The more complicated case of many populations will also be investigated and the ranges of migration of genes among populations estimated. Ultimately this will allow consideration of the times back to the common ancestors of all modern humans and a formulation of a picture of how small population sizes of the human species were hundreds of thousands of years ago. To calculate the quantities that are needed for these estimates, the different ways that the DNA sequences in our sample could be related to each other must be calculated. Computers are used to randomly sample a large number of possible genealogies. This is a promising method of exploring the statistical meaning of population samples of DNA sequences. In this way, population sizes, migration rates, and similar genetic parameters can be estimated without making unrealistic assumptions. The computer programs developed will be freely distributed as part of the PHYLIP package of computer programs for reconstructing phylogenies.